The Cotopaxi Subsistence Project--Phase I

With National Science Foundation support, Drs. George Gumerman and Mary Weismantel will conduct archaeological research in the Angamarca region which is located on the western slopes of the Cordillera Occidental of Ecuador. They will examine a total area of ca. 96 square kilometers which includes the important prehistoric political center of Angamarca la Vieja. The main goal of this first pilot stage of what is conceived as a long-term project is to test different archaeological survey techniques both to determine the range of cultural materials and sites present and also to discover the best technique for locating sites in this tropical environment. The team will employ a stratified random sampling technique to examine three primary zones: riverine, lowland and upland. Within each zone selected areas will be surveyed. Once sites are located, their boundaries will be determined, a sketch map drawn, and a fraction of the cultural materials collected for analysis. Three multicomponent sites will be chosen for test excavations which will focus on recovering temporally diagnostic artifacts and subsistence remains. On this basis a tentative chronology can be constructed and the first step of a subsistence reconstruction carried out. Although the archaeology of this region is not well known, it is clear that the Inca empire, centered in Peru to the South, extended this far North. Drs. Gumerman and Weismantel are interested in how, in this fringe of the empire the Inca maintained their control and how local inhabitants adapted to their incorporation into the empire. Ultimately, they plan to study contrasting environmental zones in Ecuador and compare both across regions and across time. They will establish a pre-Inca baseline and use this to determine post-Inca contact changes. They will focus on utilization of food since manipulation of this essential resource can serve both as a mechanism of social control and as a marker of status. Before such issues can be addressed however, it is necessary both to determine how best to work in this little known region and to develop a detailed chronology. This research is important for several reasons. It will shed new light on how large complex societies develop and are maintained. It will provide data of interest to many archaeologists and develop analytic techniques which, hopefully, will be applicable in many archaeological situations. It will also further the career of two young and very promising scientists.